2015 Unidata Users Workshop Data-Driven Geoscience: Applications, Opportunities, Trends and Challenges; June 22-25, 2015; UCAR Facilities in Boulder, CO

The Unidata Program Center is conducting a four day workshop entitled "Data-driven Geoscience: Applications, Opportunities, Trends, and Challenges." The workshop will convene on June 22-25, 2015. The workshop will raise awareness of technological advances in the geoscience academic community, atmospheric and related sciences, by giving participants opportunities to share hands-on activities, course materials, and ideas for improving research and education. This will be done through a series of presentations, hands-on lab sessions, poster sessions and panel discussions led by geoscientists and experts in geoscience cybersinfrastructure.